Discovering Biology: The Process of Learning, the Process of Science

A new introductory biology course that begins the training of biology majors and meets the general education science requirement for non-majors. Significant biological content is presented within the following pedagogical framework. First, students are introduced to the fundamental methodological and philosophical principles of science, including: controlled experiments, analysis of historical evidence, modeling and simulation, drawing correlations, statistical inference, and reasoning by analogy. Second, students are introduced to the history of biology, to provide them with an appreciation for how scientific discoveries have actually been made, and provide insights into how contemporary scientists go about their work. Third, students consider the social context of science, because if students are to think critically about the important scientific issues of today, they must realize that science interacts with other social institutions in complex ways. Fourth, students learn about science by doing science. The laboratory portion of the course is designed to give students hands-on experience with research techniques. Students learn to identify research problems, formulate hypotheses, design methods of testing, analyze assumptions, interpret results, and present findings for peer review. Fifth, students are given the opportunity to develop the thinking and communication skills that are the hallmarks of the educated individual. This framework produces greater understanding of biological concepts and provides intellectual tools for life-long learning.